I/UCRC (CGI)Collaborative Research: I/UCRC PHEV/EBVs: Transportation and Electricity Convergence

The proposed Center for PHEV/EBVs: Transportation and Electricity Convergence will focus on integrating and extending existing studies, and exploring new research needs in order to conduct a truly comprehensive assessment of the potential impacts of PHEV/EBVs. The research efforts will be anchored by the University of Texas at Austin (lead institution) partnered with Texas A&M University.

The proposed activity address a timely and important topic of high priority as a major national emphasis is being placed on the development and improvement of the electrical power infrastructure, methods of improving transportation energy efficiency, transitioning automobiles from fossil fuel energy sources and controlling potential contributors to climate change. The Center for Transportation and Electricity Convergence (CTEC) proposed in this document will take a unique systemic approach to the study of a potentially massive adoption of PHEVs/EBVs. It will consider the technical aspects of PHEVs/EBVs deployment along with a variety of socio-economic, commercial, environmental, regulatory, and industrial factors which need to be understood and carefully coordinated in order to maximize the opportunity for economic and societal benefit brought about by these vehicles. The Center will identify the dynamics of the meta-system comprised of energy, transportation, consumer choice, and infrastructure development, using advanced system-level modeling, optimization, and analysis techniques.

The proposed Center will lay the intellectual groundwork for characterizing and managing the inevitable changes in energy, transportation, and the built environment that will occur with increased adoption of PHEV/EBVs and other cross-cutting innovative sustainable solutions. Widespread deployment of PHEV/EBVs will have effects on numerous industries including electric utilities, automotive, manufacturing, transportation planning, air quality management, and construction of the built environment. The industry participation will enhance the students educational experience by providing a pipeline for talented engineers and scientist to industry. The Center plans to attract a diverse group of researchers and students with highly interdisciplinary interests and training.